WoU-MMA: Cosmic-Ray Physics with IceCube 2026 - 2029

This award supports scientists at several U.S. institutions as they continue analyzing cosmic-ray data collected by the IceCube Neutrino Observatory (ICNO) at the South Pole Station. IceCube uses one cubic kilometer of clear Antarctic ice as a giant particle detector. The detector is paired with IceTop, a surface array of 162 particle detectors. Together, these instruments detect brief flashes of light produced when high-energy cosmic rays strike Earth's atmosphere and create cascades of secondary particles. Although ICNO was originally designed to detect neutrinos, it has also become one of the world's leading observatories for studying high-energy cosmic rays. Its measurements help scientists investigate where the highest-energy Galactic cosmic rays come from and how they interact in Earth's atmosphere. In addition to advancing fundamental research in astrophysics and particle physics, this project supports related studies of the heliosphere, the Sun, and Earth's atmosphere because solar activity and atmospheric conditions can affect the cosmic-ray signals measured by IceCube. The project advances the National Science Foundation's goals for multi-messenger astrophysics and polar science while contributing to the development of artificial intelligence through the use of machine-learning techniques that are central to many cosmic-ray analyses. The award also supports education, workforce development, and public outreach through activities such as ICNO MasterClasses for high school students, research opportunities for university students, and other STEM engagement programs. ICNO's unique location at the South Pole, combined with its groundbreaking science, has generated broad public interest through news coverage, educational materials, websites, and social media.

ICNO's three-dimensional design, which combines the IceTop surface array with the deep in-ice detector, also makes it one of the world's most capable instruments for studying cosmic-ray air showers. These air showers are cascades of particles produced when high-energy cosmic rays enter Earth's atmosphere. IceTop measures the electromagnetic particles and low-energy muons that reach the surface, while the in-ice detector records higher-energy muons that penetrate deep into the Antarctic ice. This unique combination provides information that cannot be obtained by any other observatory. In addition to its role in neutrino astronomy, ICNO measures important properties of Galactic cosmic rays, including their energy spectrum, mass composition, and arrival directions. During this two-year award, the research team will continue these studies while focusing on projects that can produce significant scientific results within the available time and resources. ICNO has already produced the world's most sensitive measurements of large-scale cosmic-ray anisotropy in the Southern Hemisphere at teraelectronvolt (TeV) to petaelectronvolt (PeV) energies. By combining ICNO observations with data from other observatories, researchers will improve their understanding of the structure, energy dependence, and origin of these directional patterns. The project will also improve measurements of the cosmic-ray energy spectrum by reducing systematic uncertainties through new analysis methods and by incorporating data from recently deployed surface detectors. Finally, the project will continue using ICNO's combined surface and deep measurements to test models of high-energy particle interactions in the atmosphere. These studies include evaluating the latest hadronic interaction models used to simulate cosmic-ray air showers and making unique measurements of high-energy atmospheric leptons. Together, these efforts will improve our understanding of both the astrophysical sources of cosmic rays and the particle physics that governs their interactions in Earth's atmosphere.